ITR: Computationally Efficient Methods for Power Control in Wireless Systems

This research deals with improving the computational efficiency of existing power
control algorithms for wireless systems, as well as developing new computationally
efficient algorithms. Power control helps minimize transmitted power, and is
important as it enhances battery life for mobile terminals and extends the life
of the wireless network. In a multiuser environment power control contributes also
to minimizing interference and increasing system capacity.

The investigators study the use of iterative methods for improving the computational
efficiency of existing power control algorithms, with emphasis on game theoretic
approaches. At the physical layer power control is combined with codeword adaptation
and new algorithms for joint codeword optimization and power control are developed
in which target signal-to-interference ratios (SIRs) are achieved with minimum
transmitted power by decreasing effective interference through codeword adaptation.
Codeword adaptation is based on greedy interference avoidance methods which are also
investigated from a game theoretic perspective.